Mathematical Sciences: REU - "Inverse Problems for Electrical Networks

9531487 Morrow This REU site award will bring eight undergraduates to the University of Washington to work on inverse problems. The inverse problem for an electrical network is to determine the conductivity of each of the resistors in the network when the response of the network to boundary voltages is known. The inverse problem in impedance tomography is to determine the conductivity throughout the interior of a conducting body from measurements of potentials and currents on the boundary. Students will investigate relations between the response matrix of an electrical network and the conductors in the network. They will also work on applications of these discrete problems to inverse problems for conducting bodies. The program will run for eight weeks. During the first week there will be lectures describing known results, open problems, and numerical approaches. Students will then begin working on projects of their own choosing, using the available computing facilities, if appropriate. Students can work on their own or in teams of two or three. They will continue to meet at regularly scheduled times for the remaining weeks. At the end the students will write papers on their projects.